AISTEA: Advancing Information Security Training, Education, and Awareness

This project maximizes the scholarship program's impact, by promoting information assurance (IA) awareness at the secondary education and community college levels, and by increasing the national capability for the education of IA professionals. The project revises an existing course, IT463 (Information Assurance), and incorporates it into the university's Master of Science Teaching (MST) curriculum as a graduate course. In summer 2004, a Workshop on Information Security Education (WISE'04) at NMT campus is planned along with the recruitment of 15 science/math/computer teachers from high schools and community colleges to participate. In addition, appropriate materials from a newly developed course, IT263 (Information Protection and Security), is adapted and incorporated into future summer mini courses held on NMT campus on Information Technology.